Dynamics in Condensed Matter Systems

9610326 Fayer Experimental and associated theoretical investigations of dynamics in complex liquids, supercooled liquids, the glass transition, and glasses will be carried out. The emphasis is on understanding the relationship among molecular level dynamics, intermolecular interactions and structure. Experimental approaches will include vibrational echo experiments, transient grating optical Kerr effect, and ultrafast UV photon echo experiments. %%% The emphasis in this study is on complex liquids that include liquid crystals, polymer melts, and supercooled liquids, all systems of significant importance to materials processing of, for example, optical flat panel display devices and structural materials. ***